Combinatorial Algebra

The proposal focuses on problems in Combinatorial Algebra related to The
Burnside Problem and to Lie algebras of finite growth. The three main
problems are (i) the version of the restricted Burnside problem with
periodic primitive elements, (ii) tau-property of Golod - Shafarevich
groups and (iii) classification of conformal algebras of Gelfand-Kirillov
dimension one.

These problems are motivated by deep applications in Geometry, Topology
and Mathematical Physics.